Workshop on Advanced Approaches to Quantify Denitrification

During the last few decades, the introduction of reactive nitrogen (N) into the
biosphere by food and energy production has been greater than rates of N fixation in native
terrestrial ecosystems. By far the largest uncertainty about the human domination of the N
cycle on all scales is the amount of reactive N that is converted back to N2 during the last step
of denitrification. Without this knowledge, it is impossible to determine the rate of
accumulation of reactive N in most environmental reservoirs, and thus impossible to assess its
long-term consequences. Nitrogen interacts with carbon and other nutrient cycles and has
numerous cascading effects on water and air quality and climate. An improved understanding
of where, when, and how much reactive N is denitrified could contribute to finding solutions
to the problems created by excessive reactive N in the environment.

Unfortunately, we have little knowledge about rates of denitrification across
landscapes and waterscapes. We know the environmental conditions under which
denitrification occurs, but reliable quantification of N2 production in the field is still relatively
rare. There are three primary reasons for lack of knowledge about N2 production: (1) it is
difficult to measure due to the high atmospheric background concentrations; (2) N2
production rates are very heterogeneous in space and time; and (3) there is a lack of synergy
between the scientific communities that determine N2 production rates.

We propose holding a 3-day workshop in May 2004 of about 35 participants to focus
on quantification of N2 production via biological denitrification. The objectives of this
workshop will be: (1) to evaluate the state of our knowledge of denitrification rates in a wide
range of terrestrial and aquatic ecosystems; (2) to compare methodologies that have been
adopted by different scientific disciplines, with the expectation that collaborations across
disciplines could yield methodological advances; and (3) to chart out the current weaknesses
and the actions needed to address those weaknesses for an improved global assessment of
where, when, and how much reactive N is converted to N2 in the biosphere. Two important
considerations will be superimposed over a matrix of ecosystem types and methodological
approaches: (1) What are the appropriate scales over which N2 production can and should be
measured?; and (2) How can models be integrated with the measurements to improve
mechanistic understanding of the processes and permit estimation of fluxes at larger spatial
scales, longer temporal scales, and across a range of forecasted scenarios? The results of the
workshop will be published as one or more synthesis papers in a peer-reviewed journal.

The broader impacts of this activity include an effort to direct our scientific
understanding of the N cycle toward finding solutions to society.s concerns about
eutrophication of the biosphere. The proposed workshop is being organized as an integral
part of the International Nitrogen Initiative (INI), a joint project of SCOPE and IGBP. The
overall goal of the INI is to optimize nitrogen's role in sustainable food and energy
production, while minimizing negative effects on human health and the environment. Hence,
this workshop is part of an effort that has board implications for society by contributing
knowledge to future management the global N cycle to meet objectives of both food security
and environmental quality.